Maximal Methods for Small Sets

We intend to study maximal models for the powersets of the first
two uncountable cardinals as realized by the forcing method in the
context of large cardinals and determinacy, and the applications
of these models to other areas, especially topology. Many of these
issues complement a new theory of the infinite developed by W.
Hugh Woodin called Omega-logic. By now it is a well established
theme in set theory that large cardinals impose certain forms of
canonicity and absoluteness on the universe of sets. In
particular, the existence of certain large cardinals implies that
the theories of certain definable inner models of the universe are
invariant under forcing. Furthermore, these large cardinals also
tend to give rise to a detailed structure theory for these inner
models. The prototypical results of this type are results of
Woodin, building on work of Foreman, Magidor, Shelah, Martin and
Steel, showing that a proper class of Woodin cardinals implies
that the theory of the least inner model of set theory containing
the reals and the ordinals (L(R)) cannot be changed by set
forcing, and that this fixed theory includes the Axiom of
Determinacy. One natural program in the wake of these results is
to identify and study larger models for which similar results
hold. Another direction, noting that the Axiom of Determinacy
contradicts the Axiom of Choice, is to find similar forms of
absoluteness compatible with AC. One way of doing this is to
consider statements to the effect that the universe of sets is
closed under certain forcing operations. Such statements are
typically called forcing axioms. Another approach is to consider
forcing extensions of these inner models of determinacy. One major
advance in this direction is Woodin's forcing Pmax. Heuristically,
every natural question about the subsets of the first uncountable
cardinal should have an answer in the Pmax extension of L(R).
Nonetheless, there are several important questions about the Pmax
extension which remain open. Some of these questions concern the
properties of the nonstationary ideal on the first uncountable
cardinal. One goal in pursuing these questions is to develop a
finer analysis of the Pmax extension. In the other direction there
is the issue of whether results obtained by Pmax can be obtained
by other methods. Furthermore, the Pmax method has a number of
variations, some of which have found application in topology.

Cohen's method of forcing is a way of taking models of the
mathematical universe and producing larger, often very different
models. We intend to study properties of the first two uncountable
cardinals as realized by the forcing method in the context of the
regularity imposed by assuming the existence of large infinite
objects (large cardinals) and certain regularity properties for
set of real numbers (determinacy), and the applications of these
models to other areas, especially topology. Many of these issues
complement a new theory of the infinite developed by W. Hugh
Woodin. By now it is a well established theme in set theory that
large cardinals impose certain forms of canonicity and
absoluteness on the universe of sets. In particular, the existence
of certain large cardinals implies that the theories of certain
definable inner models of the universe are invariant under
forcing. Furthermore, these large cardinals also tend to give rise
to a detailed structure theory for these inner models. One natural
program in the wake of these results is to identify and study
larger models for which similar results hold. One way of doing
this is to consider statements to the effect that the universe of
sets is closed under certain forcing operations. Another approach
is to consider forcing extensions of canonical inner models of
determinacy. One major advance in this direction is Woodin's
forcing Pmax. Heuristically, every natural question about the
subsets of the first uncountable cardinal should have an answer in
the Pmax extension. Nonetheless, there are several important
questions about the Pmax extension which remain open. One goal in
pursuing these questions is to develop a finer analysis of the
Pmax extension. In the other direction there is the issue of
whether results obtained by Pmax can be obtained by other methods.
Furthermore, the Pmax method has a number of variations, some of
which have found application in other areas of mathematics.